Qualitative Studies of Some Partial Differential Equations and Systems

PI: Changfeng Gui, University of Connecticut
DMS-0140604

Abstract:

The PI will work on two projects on qualitative properties of partial differential equations. In the first project, he will study phase transitions modeled by the Allen-Cahn
equation and its generalized vector equations, which are the gradient flows of the Allen-Cahn energy with either double-well potentials or multiple-well potentials of equal depths. The objectives are to determine the existence, uniqueness and stability of some special configurations, and then to further study the fine structure near the interfaces or near
the triple junction and the dynamics of these sharp interfaces and
triple junctions. One of the immediate goals is to classify the optimal
configurations of anti-phases. This is indeed to solve a conjecture of
De Giorgi which concerns the one dimensional symmetry of
certain entire solutions of the Euler-Lagrange equations of the
Allen-Cahn energy. The De Giorgi conjecture is also related to the study
of minimal surfaces, and is still open in dimensions bigger than three.
In the second project the PI will study the Gierier-Meinhardt
systems of equations arising in biological pattern formations and chemical
reactions. In particular, the proposor will try to show mathematically
the existence of some special concentration patterns and to understand
their stabilities.

Diffusion is a very common phenomenon, and it generates very
complex structures when several different substances are involved.
Phase transitions, pattern formations are well observed in material
sciences, in biological and chemical reactions, and they are closely
related to diffusions. Special nonlinear partial differential equations
and systems are used to model these phenomena mathematically. The
proposor hope to develop analytic techniques to obtain good
qualitative properties for solutions of these equations, which will lead
to better numerical methods for simulations. The study will help to
understand the finer structures and long time behaviors of phase
transitions, pattern formations, and other similar phenomena.